SGER: Dynamic Partitioned Global Address Spaces for Future Large Scale Systems

With the continued explosive growth in electronic information, both
business enterprises and high performance computing systems are being
structured as large ensembles of interconnected modular
computing/storage modules or blades. These systems form the next
generation data centers and supercomputers and a major impediment to
their successful wide-spread deployment is the growing capital cost as
well as power and cooling costs. A dominant contributor to these costs
is the memory subsystem that can exceed the costs of the processing
core and consume as much as 25%-40% of the energy in high end
configurations. Currently, the architecture of data centers limits how
physical memory in data centers can be shared by different programs in
the system. Consequently, systems must be designed to accommodate the
worst case peak memory demand and is therefore unduly expensive both
in terms of capital cost as well as power.

The proposed research explores a novel solution for the reduction of memory system related costs by enabling memory to be shared across blades in a dynamic, demand-driven, fashion. The key idea is the tight integration of memory subsystem with the network subsystem. The result is a significant increase is memory efficiency and an attendant drop in the total memory requirements of a data center with little to no performance penalty. This approach is made feasible by exploiting recent advances in chip integration where the memory controllers and high performance communication interfaces are integrated on the same die. Thus cost and power can be more effectively managed than previously feasible by tracking actual memory demand rather than statically provisioning for worst case memory demand.

To maintain its leadership in computing, U.S. industry requires both
technical advances such as those proposed here, new companies that
leverage these advances, and new employees with the skill sets needed
for rapid technology and product development. The proposed work offers
suitable technical elements to offer ways to engage students in
Computer Science and Engineering topics, to arrest the ongoing decline
in the U.S. enrollment in CS and CmpE, to create new employment
opportunities and to leverage the creativity and entrepreneurial
nature of the U.S. student population. Existing relationships with
technology companies such as IBM, HP, and Intel through an existing
NSF I/UCRCat Georgia Tech will provide pathways to influence the system
community.